Interseismic Crustal Deformation in Northern California

Paul Segall 95-26910 The PIs propose to continue ongoing GPS studies in northern California aimed at understanding the kinematics of crustal deformation across the Pacific-North America plate boundary, and at investigating the accumulation of interseismic strain and the time-dependent variations in strain along the San Andreas Fault system. The PIs will combine (new and existing) GPS data with measurements using VLBI and EDM techniques to obtain a self-consistent velocity field for the region. Ultimately the PIs will incorporate their results into deformation models that can be useful in assessing seismic hazards in this important region.